High Performance Liquid Chromatography for Undergraduate Education

The goal of this project is to provide a state-of-the-art teaching tool for our undergraduates. The instrument, a high performance liquid chromatograph (HPLC), is also computer interfaced and controlled. This HPLC is first introduced at the sophomore level as a laboratory experiment in organic chemistry. The primary use of the instrument occurs in the upper division advanced laboratory sequence servicing all chemistry and some biology majors. This is taught as a three-week module in a five-credit course. This module emphasizes both HPLC theory and practice as well as teaching the computer interfacing and software. Other uses include the undergraduate research component in the curriculum. The university will match the award with an equal amount of funds.